An Innovative Approach to Second-Year Physics Laboratories

An instrument-based physics laboratory for students in a variety of disciplines will be modernized. The emphasis on adding experiments in modern physics. This grant is made under the Instrumentation and Laboratory Improvement Program.